Local Cohomology in Algebra and Geometry

The investigator intends to study problems from the theory of local
cohomology that arise in interacting areas of algebraic geometry,
commutative algebra, and through combinatorial aspects of the theory
of partial differential equations. These problems include questions
that relate to structural properties of rings and modules, as well as
those aimed at obtaining quantitative results. A common link to the
proposed study is local cohomology, a concept that ties together
algebraic geometry, D-module theory, and commutative algebra. The
investigator will specifically explore the interaction of certain
non-vanishing local modules with the structure of the solutions of
A-hypergeometric systems, with a view towards jump phenomena. A
related study is aimed at understanding the Bernstein--Sato polynomial
and jump loci of local systems along hyperplane arrangements. In a
different direction, the investigator will study a basic question of
Lyubeznik addressing finiteness properties of local cohomology.

This is a computer-aided project in the mathematical area known as
algebraic geometry. During the 20-th century, algebraic geometry has
changed its nature from analytic geometry into a much more complex
science. The result is a complicated but powerful method for studying
curves, surfaces and other geometric objects defined by
polynomials. This modern approach to geometry allows mathematicians to
use geometric techniques and intuition in many other situations,
including (but not restricted to) robot motion planning, computer
vision, statistics, and computer security. The methods used in
algebraic geometry are of a very wide range. The investigator's work
concentrates on the applications of differential calculus and computer
power to the subject, thus combining geometry, algebra, calculus and
modern technology in his work. As he continues to uncover the
interplay of these objects by theoretical and computational means,
algebraic geometry is becoming ever more valuable as a tool in other
parts of mathematics, physics and engineering.